Group Research in Atomic, Molecular, and Optical Physics at JILA

A broad program of research in atomic, molecular, and optical physics and related areas will be carried out at JILA at the University of Colorado. Three major themes, or focus areas, characterize the effort: ultracold atoms and molecules, including behavior of Bose-Einstein condensates, formation of degenerate Fermi gases, and atom guiding; ultrafast optical science and applications, including coherent control of molecules, quantum information, and probing molecular bonds and dynamics; and novel tools and spectroscopy, including innovative molecular spectroscopic techniques and metrology with femtosecond sources.